Theoretical Studies of the Quantum Hall Effect and Nonlinear Mesoscopic Transport

9632141 Johnson This is a theoretical program consisting of two parts: to study the fundamental properties of integer and fractional quantum Hall effect (QHE) and to study nonlinear mesoscopic transport. More specifically, in the first part there will be a study of the rich ground states and transitions as a function of magnetic field in small quantum dots, using a previously developed ensemble density functional method which will be extended to include spin degrees of freedom and current distributions. Further applications of this method include a study of the off-diagonal long range order in the fractional QHE and detailed properties of the composite fermion. In the nonlinear mesoscopic transport, there will be a comparative study of a formalism developed by the PI's and the traditional approaches such as nonequilibrium Green's function with possible application to the second harmonic generation in quantum wires. %%% In this grant supporting collaborative theoretical research by the two young PI's, the main focus is on two subjects: properties of layers of electrons subjected to intense magnetic fields, a subject referred to as quantum Hall effect and on response of small devices to intense radiation. Both of these projects involve special theoretical techniques developed by these PI's. ***